Carbon Cycling in the Arctic Ocean: Molecular Level Studies

ABSTRACT

OPP-9815705
SKOOG, ANNELIE
UNIVERSITY OF CONNECTICUT

This research project will develop and test methods to measure constituents of the organic matter pool in the Arctic Ocean. The goal of the proposed research is to gauge the degree to which biological activity contributes to the observed organic matter distributions. The information is important for understanding the cycling of organic carbon in the Arctic Ocean, particularly the transport off continental shelves to the deep basin. The results of this project will provide input for planning a large Phase 2 field program of the Shelf Basin Interactions project in 2002 in the same geographic area.